Engineering Research Equipment Grant: Holographic Camera System and Shaker

This project provides resources to procure equipment for four projects at the City College of the City University of New York. These projects address the constitutive relation of a damaged bone-cement interface, the experimental-analytical analysis of bone ingrowth prostheses, the analysis and prediction of the dynamic fatigue failure of adhesive joints and the vibration of mechanisms with clearances. The equipment comprises a holographic camera system and a shaker system.